The Developmental Roots of Field-Specific Ability Beliefs about Mathematics

A strong, skilled STEM workforce is central to the economic growth and technological competitiveness of the U.S., yet many capable students disengage from mathematics early in school. One underexamined reason is the belief that doing well in such fields as math requires exceptional intellectual talent—being “brilliant.” When children come to see math as a field reserved for the brilliant, even capable students may conclude it is not for them. Although this belief is known to discourage participation among older students and adults, little is known about when it first takes hold, where young children acquire it, or whether it predicts how they fare in math over time. This project will address these questions with the first longitudinal study to follow children through a more formative period. Tracking 6- and 7-year-olds and their parents over 1.5 years, the research will chart when children begin to associate math (more than reading) with brilliance, will examine the contributions of parents’ own beliefs, the feedback parents give, and the home math environment, and will test whether early brilliance beliefs about math predict children’s later math motivation, achievement, and career aspirations. By identifying how and from where these beliefs arise, the project will produce foundational knowledge that can help parents, caregivers, and teachers create learning environments that support all children’s continued engagement with math.

The project will investigate the acquisition, socialization, and consequences of field-specific ability beliefs (FABs)—beliefs about the degree to which success in a given subject requires exceptional intellectual ability, or “brilliance.” It will use a three-wave longitudinal design in which 220 children ages 6 to 7 and one parent or guardian will each complete assessments at three points spaced roughly nine months apart across 1.5 years. At each wave, children will report their FABs, growth (vs. fixed) mindsets, and universal (vs. non-universal) beliefs for both math and reading, along with motivational measures (self-efficacy, interest, anxiety, evaluative concern, and a behavioral challenge-seeking task) and math career aspirations; children’s math achievement will also be assessed. Parents will complete the same belief measures, as well as measures of math anxiety, their typical responses to their child’s math successes and struggles, and the home math environment (the frequency of math-related activities at home). Three research questions will organize the work: First, the project will examine the developmental trajectory of FABs about math and reading (that is, when children come to differentiate these subjects). Second, the project will examine whether parents’ beliefs and behaviors and the home math environment predict children’s FABs. Third, the project will examine whether FABs uniquely predict later math motivation, achievement, and aspirations, above and beyond growth mindsets and universal beliefs. Data will be analyzed with longitudinal multilevel models that separate within-child change over time from stable between-child differences and thereby support stronger developmental inferences than prior cross-sectional work. The findings will advance theory on the developmental origins of ability beliefs and identify points in early schooling at which future interventions may be most effective.

This project was funded by the STEM K-12 program, which supports fundamental, applied, and translational research on STEM learning in both formal K-12 education and informal learning environments.